Flaw Inspection in Nonferrous Conductors Using Magneto-OpticDetection Methods

A novel method is developed for visualization of sub-surface flaws in nonferrous conductors by the use of magneto-optic materials.